POWRE: A Narrative: Science Stories by Native American Teachers-In-Training

The purpose of this research study is to collect and analyze the stories of Native American teachers-in-training. The teachers-in-training are participants of a United States Department of Education funded bilingual program on the Omaha Reservation School, Macy, Nebraska. This research project focuses on the stories of these Omaha Native American teachers-in-training. Their stories will describe their experiences and perceptions teaching and learning elementary science in the Reservation school. Stories will be analyzed to explain the nature of science as told in the stories of the teachers-in-training on the Omaha Reservation school.